Doctoral Dissertation Research in Geography and Regional Science

The establishment of natural parks in eastern Africa provided protected habitats for endangered wildlife but displaced thousands of persons. Despite criminal penalties, many residents of areas near the parks now regularly move into parklands to gather firewood, graze livestock, and hunt game. This doctoral dissertation project will explore the historical and geographical evolution of conflicts between local residents and conservationists around Arusha National Park in Tanzania. Documentary and archival research, aerial photographic interpretation, land-use surveys, and formal interviews will be used to trace the historic roots of current conflicts, to identify how regional patterns of land use affect the use of park resources, to determine how different economic situations among nearby villages affects the use of park resources, and to assess the degree to which illegal incursions into the park are forms of political protest. This project will provide valuable information about the specific nature of land-use conflicts in the study region, and it will also present more general insights into the ways in which conservation policies affect local populations. This project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.